Doctoral Dissertation Research Support: Peace Dividend in Israel and Egypt

9520361 Ward The peace dividend is an attractive, yet, elusive subject. The search for security benefits led Israel and Egypt to sign the Camp David peace agreements in 1979. In addition to immediate benefits accruing from the recognition of borders and its right to exist, Israel should receive longer-term benefits from decreases in defense spending; as money better invested in other parts of the economy pays off. As well, in addition to benefits accruing from Israel's final withdrawal from the Sinai Peninsula, Egypt may receive similar longer-term benefits, now that it has agreed on peace with a former enemy. In the years since the Camp David agreements, peace, however lukewarm, has been achieved, major security concerns have been addressed, and Egypt has been accepted back into the Arab fold, perhaps leading to additional bilateral peace treaties with Israel. When do the longer-term welfare benefits, the peace dividends, become obvious. Whether one looks at the global, developing countries, or regional samples, Israel and Egypt have witnessed better than average growth rates and bigger cuts in defense spending. Should these trends have arrived so quickly, or are they part of a larger time frame which includes earlier years? There are clearly connections between peace and economic prosperity in Israel and Egypt. This research will uncover and describe these links, show how they have been achieved, project what the future holds, and suggest how lessons learned in Israel and Egypt might be applied in warring dyads elsewhere. ***